REU: Undergraduate Physics Research

*** 9732622 Bartlett The JILA (formerly Joint Institute of Laboratory Astrophysics) and the Department of Physics will conduct a summer "Research Experiences for Undergraduates" program introducing 14 undergraduates to active, on-going research. The 19 participating faculty are well-recognized contributors to the fields of Atomic, Molecular and Optical Physics, Gravitational and Geophysics, Condensed Matter Physics, Elementary Particle Physics, and Nuclear Physics. Approximately 60% of the students will be selected from colleges and universities in Colorado and the contiguous states; 40% will come from the University of Colorado. Special efforts will be made to solicit applications from minorities. ***